The Storage, Processing, and Retrieval of Scientific Knowledge: A Basic Course in Information Access for Undergraduates

This project focuses on the development of an undergraduate course designed to familiarize students, including both science majors and general education students interested in science and the information professions, with the rapidly accumulating body of recorded scientific knowledge, with an emphasis on its infrastructure, processes for introducing new knowledge, methods of access, and evaluation. The first phase of the project will involve consultation with both research and teaching faculty at the Univerisity of Illinois in a variety of disciplines, in order to gather data on the sources of information used by specific research communities and to establish the range of educational needs in the science and general education curricula. The syllabus development stage of the project will include the preparation of a volume of case materials, creation of laboratory exercises in information retrieval, and a survey of the relevant literature. This course is designed to dispel traditional stereotypes of information storage, enhance student's appreciation for the creation and application of scientific knowledge, increase sensitivity to issues of policy and ethics, and provide practical experience in locating and accessing a wide variety of information sources.